Inference and Computation in Multi-Level Models

DMS 9705156 INFERENCE AND COMPUTATION IN MULTI-LEVEL MODELS Carl Morris and David van Dyk Harvard University Summary Hierarchical and multi-level methods in statistics (Bayesian and otherwise) have become ever more prevalent in modern statistical practice, as better computational tools and computational advances make these powerful methods more tractable. This research will extend the theory and computation for hierarchical models in general, and especially for versions of them that seem promising for practical applications, as suggested partly from the investigators' experience with them for medical quality assurance, meta-analysis, image processing, traffic engineering, and for other situations. The investigators will study and develop procedures for fast fitting of exponential family models, of generalized linear models, and of multivariate models. They will work on making inferences and on foundations. They will study and evaluate diagnostic methods needed to assess the modeling assumptions made for the (second level) distributions that govern the individual parameters. Operating characteristics and risk functions are to be calculated. Mindful of the computational burden of these methods, the investigators will seek good mathematical approximations and the efficient implementation of these more precise, computationally intensive methods. While multi-level models are still new, they are the focus of much research because their applications and potential applications abound in scientific, engineering, commercial, medical, and governmental contexts. Applications of hierarchical models have been and are being made to image processing, agriculture, genetics, health services, and to many other areas. For example, the Principal Investigator's past research has included using and adapting multi-level statistical models to extract more accurate information from satellite imagery data by having the t wo levels represent separately the measurement error distributions and the uncertainty about the ground truth. The investigator also has used these models to assess more accurately, from non-experimental traffic data, whether specified highway safety improvements actually reduce accidents. Two-level models are needed because direct treatment-control comparisons made without them tend to be biased when safety improvements have been made mainly at high hazard locations. Concern for these and other applications of multi-level models motivate this research, which is aimed at advancing their proper use and at optimizing their computational efficiency.